A Computerized Database for Theoretical and Historical Bantu Phonology and Morphology

ABSTRACT SBR 96-16330 PIs: Hyman & Lowe The present project continues efforts to develop the Comparative Bantu On-LineDictionary (CBOLD) which currently serves as a basis for theoretical, descriptive, and historical research on this important and vast language family. During the first three years of the project, CBOLDcreated a unified database for comparative research in Bantu based on lexical materials, including over two dozen complete dictionaries, scores of smaller wordlists, and other lexical databases. Of the 500+ daughter languages in the Bantu family, CBOLD now has representative data for over 120. CBOLD has become a major international collaboration and now distributes (electronically and soon by other means) these lexicographic materials to linguists, historians, other social scientists and even epidemiologists throughout the world. In this second three-year period, activities at CBOLD will center around three essential activities: 1) Development of the etymological (comparative) component of the database; 2) Continued analysis of linguistic phenomena as exemplified in the Bantu lexicon (semantic, morphological, phonological); and 3) Completing the inventory lexical material from throughout the Bantu zone. In parallel with the CBOLD database development effort, resident and visiting researchers at Berkeley, as well as scholars accessing materials through our WEB site (http://bantu.berkeley.edu/cbold.html) will continue to utilize CBOLD to produce scholarly works in their respective fields.